Armored T-28 Aircraft Facility for Research Requiring Storm Penetrations

This three-year renewal will continue operation of the T-28 aircraft as a national facility. The aircraft, maintained in a flight ready condition, will support NSF-approved atmospheric research projects requiring the capability to penetrate mature convective storms that may contain hail, lightning, intense turbulence or heavy icing conditions. The agreement would provide for management, staffing, operations, maintenance, testing and enhancements of the T-28, as well as covering both the scientific and technical support for planning and data reduction phases of field projects. Facility staff will contribute to the scientific analysis from the data collected in field programs and publish independent and joint research results.